Modulatory Neuropeptides in Aplysia

The neuron, the single brain cell which is the basic unit of the brain, was discovered 100 years ago. It is now estimated that there are a trillion cells in the brain which are interconnected by a vast and complex system. Communication between any two neurons involves the release of chemical neurotransmitters at the synapse, or area of contact. Dr. Lloyd's research is directed towards understanding the mechanisms underlying the modulation of synaptic transmission. While it was once readily accepted that an individual neuron only contained one specific neurotransmitter, it is now clear that a neuron may have multiple transmitters as well as other chemicals, such as peptides, that have modulatory action. Dr. Lloyd has identified motor neurons in which conventional neurotransmitters are co-localized with neuropeptides. He will now use a combination of state-of-the-art biochemical and neurophysiological techniques to examine how peptides are released from these neurons and their interaction with conventional neurotransmitters at pre-and post synaptic sites. The results from these studies will lead to new insights into the crucial role that neurotransmitters play in the functioning of the brain. Moreover, given that alternation in neurotransmitters are implicated in a number of neurological disorders, these studies may be of potential importance for the development of treatments to alleviate these diseases.